SBIR Phase I: Cell-Based Microfluidic Platform for Drug Discovery

This Small Business Innovation Research (SBIR) Phase I Project proposes to design and construct a novel cell-based microfluidic platform for the discovery and development of therapeutic drugs. Utilizing state-of-the-art microfabrication techniques, micro-sensor and controller design, fluid handling and cell culturing techniques, the project seeks to address the shortcomings and bottlenecks of current biopharmaceutical drug discovery and development processes. The specific project objectives include the design and fabrication of micro-scale bioreactors for microbial and mammalian systems as well as the design and construction of a microfluidic cell culture media and gas handling system. These components will be integrated into a highly parallel and completely automated platform of cell culturing devices. These devices have the potential to introduce a new paradigm that would streamline the development of new cellular products for therapeutic applications.

The commercial applications of this project will be in the area of drug discovery and development. Automation and parallelization of the drug discovery process will allow for increased efficiency in drug time to market as well as offer the opportunity to extend research efforts to areas that had previously been limited by manpower constraints.